In-Situ Cure Monitoring in Vinyl Polymers, Bismaleimides and RIM Polyureaurethanes

9415385 Sung The objective of this research is to extend intrinsic and extrinsic UV and fluorescence techniques to important polymers such as vinyl polymers, bismaleimide and polyureaurethane. In-situ reaction monitoring techniques will be developed and applied for these three types of polymers by specially designed fiber-optic instruments using the external reflection ultraviolet and fluorescence techniques, by taking advantage of the spectral changes as a function of polymerization. %%% In addition to the development and application of these in-situ cure monitoring techniques, an additional benefit of this research is the design and introduction of the transportable ultraviolet and fluorescence fiber optic instruments with specially designed attachments and analytical cure software, that can be used in the manufacturing environment.